Interfaces for the Twenty-First Century Conference, August 16-18, 1999, Monterey, California

The award will support a conference on mathematical models for interfaces in fluid
mechanics and materials processing, to be held on August 16-18, 1999 in Monterey, CA.
The meeting will bring together leading researchers in interface problems in order to
discuss the current state of the art and to assess the commonality of approaches used
to model interfaces and solve for their evolution. The participants will include applied
mathematicians, engineers, and scientists from academia, government laboratories, and
industry who are working on these problems. This conference will present a unique and
timely opportunity for these communities to come together in an informal atmosphere to
assess the current state of the art and to identify the important research problems for the future.

Interfaces are free or moving boundaries that occur between two different material phases.
They are found in a wide range of fluid mechanics and materials processing problems in a
variety of different industrial processes and everyday phenomena, ranging from water drops
in a hot pan to coating films on a solid surface. A better understanding and the successful
manipulation of such boundaries could lead to process improvements with wide benefits.